MRI: Acquisition of a High Performance Computer Cluster for The New York Botanical Garden

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This Major Research Instrumentation (MRI) award funds the acquisition of a high performance computer cluster at The New York Botanical Garden (NYBG). The cluster will be used to study a wide variety of topics in plant biology including evolution, gene function, three-dimensional image reconstruction, ecosystem function, and DNA based specimen identification. The analyses conducted with the computer cluster will be published in peer-reviewed scientific journals.

A computer cluster at NYBG will broadly impact the research of a wide variety of constituencies: (1) An internship program formed between NYBG and the Bronx High School of Science, a school of highly gifted students from predominantly minority background, will give at students the opportunity to perform independent research in a laboratory. (2) The quality of the graduate program will improve as students will have a more powerful data analysis option and will be more broadly trained in current techniques. (3) Undergraduate and graduate students will be offered a class on Computational Methods in Biology at Lehman College (CUNY), a predominantly minority institution.